QEIB: Spatially-distributed Population Models with External Forcing and Spatial Control

Gross
0110920
The investigators develop methods to carry out spatially
explicit control to link natural and anthropogenic forces that
influence the demand for biological resources with the dynamics
of those resources. While there have been numerous alternative
approaches taken to add spatial components to population models,
few of these have attempted to deal with spatial control. The
investigators evaluate extensions of optimal control methods for
dynamical systems to spatial problems, with a focus on general
mathematical and computational issues for spatial control linked
with abiotic forcing of populations. The effort is motivated by
two specific examples. The first concerns black bears in the
southern Appalachians, a population with explicit environmental
forcing associated with acorn mast production, which varies
considerably in time and space. This interacts with hunting,
which is spatially restricted. The second example involves an
invasive exotic plant species, Lygodium microphyllum (Old World
Climbing Fern), in the Everglades of South Florida. This species
can completely cover the native tree islands of the region and
spatial control of hydrology may be applied to limit its growth.
Many of the current problems in regional management involve
issues of spatial control -- what to do, where to do it and for
what time periods. Examples include alternative plans for land
use, forest harvesting, location of dams, and water control. A
wide variety of the major environmental public policy issues in
the US require scientific assessments of the impacts of
alternative management. The investigators develop new
mathematical and computational approaches that can aid managers
and the public to compare alternative management plans of land
and regional resources. The objective also is to allow for
comparisons of alternative criteria, arising from different
stakeholders, to judge the public utility of different spatial
management plans. The project is supported by the Applied
Mathematics, Computational Mathematics, and Population Biology
programs and by the MPS Office of Multidisciplinary Activities.